Smart Antennas and DS/CDMA Communications: Basic Algorithmic Developments and Hardware Prototyping

0073660
Pados

Adaptive antenna arrays and DS/CDMA communication systems are
two subjects with their own individual challenges that have
separately generated significant research interest over the past
several years. When brought together at the integrated antenna-array
CDMA-receiver system level, these challenges are magnified and
new problems of both theoretical and practical interest arise.
This proposed research on antenna array DS/CDMA communications
is characterized by the following three attributes: (i) The principle
of joint space-time processing is maintained. (ii) Low optimization
complexity is sought, therefore matrix inversions and/or
eigen-decompositions are viewed as undesirable operations.
(iii) Superior adaptive system performance on short data records,
as opposed to ideal asymptotics, is the objective.

In terms of projected contributions to science and engineering
principles, this proposed research is intended to build on past work
of the PIs during the last four years -supported by seed funding by
the National Science Foundation- that led to initial understanding and
preliminary development of new linear filter optimization criteria and
procedures. The focus is on low bias and low short-data-record variance
adaptive optimization procedures that the investigators of this proposal
have developed and termed ``auxiliary-vector (AV)'' filtering. AV filtering
may touch many aspects of multidisciplinary engineering that are presently
hampered by the ``curse of dimensionality'' and could benefit from adaptive
filtering and/or adaptive system optimization through limited input data.
Variations of AV filtering schemes are currently considered in diversified
areas that include temporal-only processing of CDMA signals, synchronization,
adaptive robust spread-spectrum receiver designs, adaptive array radars,
Direction-Of-Arrival estimation problems, and jam-resistant GPS. This present
research plan covers aspects varying from basic algorithmic developments and
theoretical analysis to DSP and FPGA hardware prototyping and testing through
the use of the SPW (R) block-level communications systems simulator,
a programmable antenna array testbed with 12 complete receive chains,
an anechoic chamber with range in excess of 7 meters, and a DSP/FPGA
board-level implementation testbed.
***